CAREER: Neuromorphic Wearables for Continuous and Robust Neurophysiological Monitoring

This research develops a new class of brain-monitoring wearables that will transform how brain activity is measured outside the clinic to enable continuous and real-time interpretation of brain activity in daily life for millions of people. These next-generation computing systems will match clinical-grade accuracy in ambulatory settings, operate for months on a single battery charge, and function with minimal user burden. They will capture, for the first time in a noninvasive wearable, the full spectrum of brainwave signals, including high-frequency components under motion, by using a novel skin-friendly electrode design and intelligent and adaptive neuromorphic processing and computing methods.

Three interdependent research thrusts will address sensing, computing, and clinical integration. Thrust one develops a programmable, humidity-regulated, gold-coated electrode with closed-loop thermal control that stabilizes skin-electrode impedance below three kiloohm across ten thousand reuse cycles to enable robust capture of high-frequency brain signals above thirty Hertz under motion. Thrust two builds a neuromorphic sensing and computing pipeline that efficiently converts signals to sparse spikes and trains Spiking Neural Networks (SNNs) for runtime energy-accuracy reconfiguration without retraining. Thrust three deploys a two-tiered architecture integrating on-device seizure detection and a smartphone-based spiking transformer model that predicts seizures thirty to sixty minutes ahead.

This work establishes neuromorphic wearables as a foundation for real-time, long-term brain health monitoring across clinical care, education, and open science. By enabling detection and prediction of seizures and other neurological events outside the clinic, the resulting platform can support patients and caregivers in everyday settings, with extensions to early dementia detection and sleep monitoring. Hardware schematics, firmware, anonymized datasets, compiler and routing infrastructure, and pretrained foundational models will be released as open-source artifacts. The educational activities include updated graduate and undergraduate courses connecting ultra-low-power systems, neuromorphic computing, and digital health, a new course for non-computing students, and exciting summer research and outreach programs.